The Effect of Tropical Rainfall on the Ocean Surface Layer

Paulson 9907404

Upper ocean data collected during the Coupled Ocean Atmosphere Response
Experiment (COARE) in the western tropical Pacific will analyzed in combination
with large eddy simulations (LES) to understand the dynamical processes which
govern the evolution of fresh water lenses formed by rainfall. In addition to
comparisons with the observed case studies, the LES model will forced with
idealized forcing to extend the experimental results to a full range of forcing
conditions. The cases studies and the LES simulations will also be compared
with ocean mixing parameterizations such as the Mellor_Yamada second order
turbulence closure, the Price-Weller-Pinkel mixed layer model and the K-profile
parameterization based on a model of the atmospheric boundary layer.